Multi-Radar Studies of the Dynamics of the Antarctic Ionosphere

Abstract 9421266 Baker This project uses high-frequency coherent back-scatter radars to study ionospheric structures of auroral origin and to determine the magnetospheric activity responsible for the radar echoes. The existing radars are at Goose Bay, Labrador Canada and the British Antarctic Survey station at Halley Bay, Antarctica. This pair is called the Polar Anglo-American Conjugate Experiment, and they are so located that their fields of view are magnetically conjugate. A new radar, called the Southern Hemisphere Auroral Experiment will be installed at the new South African Sanae Station in Antarctica when it is built. Though not officially part of this consortium, the new radar at the Japanese Antarctic Station, Syowa, will contribute complementary data. The project is a joint venture of Johns Hopkins University Applied Physics Laboratory, British Antarctic Survey and the South African National Antarctic Expedition. The Japanese National Institute of Polar Research is cooperating closely with the PACE/SHARE collaboration. JHU/APL developed the use of HF coherent radars for auroral research, based on their extensive experience with Over-The-Horizon radars, which are used for defense purposes. ***